Science in the Liberal Arts Education: An Undergraduate Course Development Project

Science in the Liberal Arts Curriculum This two-year collaborative curriculum development project will develop and implement an innovative interdisciplinary Science in the Liberal Arts Curriculum at Portland State University and at Clackamas, Mt. Hood, and Portland Community Colleges. Faculty from the four institutions will cooperate in formulating a curriculum that provides liberal arts students with three types of interdisciplinary science courses that will meet the University's general education science requirement. Natural Science Inquiry courses will focus on open-ended laboratory and field studies in the manner recommended by Project Kaleidoscope. Integrated Science Concepts courses will be developed around concepts that bridge more than one scientific disciplIne and will feature investigative laboratories. Context of Science in Society courses will explore the social, political, economic and ethical dimensions of science and technology. The project will support course development efforts by natural science faculty from the greater metropolitan area community colleges and the university academic departments. The Advisory Council for the project will consist of nationally recognized experts in undergraduate science education and educational evaluation in both university and community college settings. In the year following completion of the project Portland State University will host an undergraduate science curriculum conference as one of the dissemination tools for the project. Throughout the course development period educational research will be conducted to evaluate the effectiveness of the curriculum and teaching strategies.***//